Algebraic Multigrid Methods and Their Application to Generalized Finite Element Methods

The research in this proposal is on the study and applications of
efficient algebraic multigrid methods for the solution of linear
algebraic systems arising from the discretization of second order
partial differential equations by the generalized finite element
method. The proposed research will focus on the development and
analysis of adaptive techniques in the construction of hierarchy of
nested spaces and the choice of approximate subspace solvers that lead
to the efficient and robust multigrid methods applicable to wide range
of generalized finite element discretizations.

The rapid increase in the power of today's supercomputers has made it
feasible for the scientific community to use numerical simulations to
model physical phenomena to produce meaningful results. One of the
modern techniques that can deliver quantitative results via such
simulations is the generalized finite element method. This method has
proved to be a very robust discretization tool, applicable in various
branches of engineering and sciences, for example, in simulating and
determining the elastic, electromagnetic and other important physical
properties of heterogeneous materials. Like most other discretization
techniques, most often the majority of computation in such simulations
is devoted to the solution of the resulting linear systems of
equations. Hence, it is very important to develop efficient solvers
for these systems. The results from the proposed research are thus
expected to have a broad and noticeable impact by providing the much
needed iterative multilevel solution techniques for the discrete
linear systems arising from numerical models in many applications.
The proposed research is also expected to have an educational impact
as it will provide a solid base for training of graduate students in
the modern theoretical and practical aspects of numerical methods for
problems in science and engineering.